Acquisition of High-Performance Graphics Supercomputer for the College of Science, Florida Atlantic University

9512266 Jordan The proposed project is to provide a central, high-performance, and network-based computational facility with high-quality graphics, visualization and animation capabilities for the needs of faculty and graduate students in sciences. The facility supports a large number of diverse research projects in scientific and mathematical disciplines. Four general types of research are identified, namely; (1) compute-intensive, (2) algorithm development and applications, (3) data analysis, visualization and animation, and (4) modelling simulation. The computational environment encourages an interdisciplinary approach which brings together the common elements of research projects in the Departments of Physics, Chemistry, Mathematics, Geology and the multi-disciplinary Center for Complex Systems. An important consequence of the proposed project is that it will not only enhance the current faculty and student research and education but that it will act as a catalyst for new collaborations with the College of Science. ***